Engineering Research Equipment Grant: A Hybrid Resonant Column/Torsional Shear Device

This equipment grant will be used to purchase a hybrid resonant column/torsional shear device for soil testing. This test device is capable of performing the resonant column test, a nondestructive test to study the dynamic response of soils, and the torsional simple shear test on the same specimen.